SURVEY OF RESEARCH AND DEVELOPMENT IN INDUSTRY (SAMPLE SELECTION AND SURVEY IMPROVEMENTS)

This action covers three separate tasks for improving the annual Survey of Industrial Research and Development conducted for NSF by the Bureau of the Census. Task I is the selection of a new survey sample, Task II is the design, development, and implementation of new survey processing software, and Task III is a follow-up telephone survey of nonrespondents to the 1991 survey round which will provide a more complete understanding of the reasons for nonresponse. NSF and Census staff have previously identified these areas for improvement. Under authority granted by the National Science Foundation Act of 1950, NSF collects and disseminates descriptive economic statistics, as well as other pertinent information, about scientific and technological resource utilization and activities. Data collected by the Survey of Research and Development in Industry, when used alone or in combination with data obtained through other NSF statistical and analytical activities, provides policy makers with an overview of R&D funding and performance in the United States. The current survey is being conducted under interagency agreement SRS 92-09661.